Topology of Large Scale Structure in the Universe

AST 95-29120 PI: J. Richard Gott, III Topology of Large Scale Structure in the Universe The topology of large scale structure (LSS) of the universe will be studied through quantitative analysis of a number of important observational samples (in particular the Sloan Digital Sky Survey, the Shectman et al. deep redshift slices, and the COBE DMR Sky Maps) and by comparison with new, very large N-body and hydrodynamic simulations. This enables investigation of whether the complex large scale structure seen today with its large voids and great walls could have arisen from random quantum fluctuations in the early universe and affords an important new opportunity for cosmological model testing.